Collaborative Research of the Joint Institute for Nuclear Astrophysics

The proposal aims as part of the JINA collaboration at the improved
experimental study of nuclear reactions, relevant for the nucleosynthesis in stellar hydrogen and helium burning scenarios. The measurements are performed at the KN&JN high current
accelerators at the University of Notre Dame. One ocus of the measurements will be
the study of reactions in the NeNa cycle which is of importance for
hydrogen shell burning during late stellar evolution and also for explosive
hydrogen burning in novae. For helium burning, the experiments will
concentrate on the measurement of stellar neutron sources during the
red giant phase of stellar evolution and in supernovae shockfronts.
The experiments are designed for using forward and inverse
kinematics in a complementary manner. The measurements will be performed using a
re-circulating gas-target system which can be operated with different
light and heavy target gas material (H,He,Ne). The reaction products
will be measured with a set of Ge-clover detectors for gamma-radiation
and a dedicated Si-strip detector array for particles.